Continued Broadcast of "Square One" TV in 1993-1994

CTW is approaching completion of the fifth and final season of new show production for Square One TV -- a daily PBS television series designed to promote interest in and enthusiasm for mathematics among eight- to twelve-year-olds, with special attention given to girls and minority children. Research has shown that Square One TV is educationally effective, and the series has received numerous awards, from both the educational and broadcasting communities.